Development of Expandable and Sustainable Accelerated Masters Degree Programs in Engineering for Post 9/11 Veterans

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This engineering education award to the University of Virginia will develop an innovative model for an accelerated masters degree in systems engineering that is customized to the needs and strengths of veterans. A particular emphasis will be including research experiences and industrial internships within the degree program. The results will also be presented on the web, at technical conferences and published in professional journals. The project is expected to assist the transition of veterans to civilian life and to enhance the number of students who complete engineering degrees and are ready to fill engineering jobs or start new high tech businesses.